Development of Computer-based Teaching Laboratories

This project will develop a set of pedagogically sound microcomputer- based laboratory experiments for beginning physics courses. In addition, it will introduce computer interfacing and control into the advanced physics laboratories. To achieve these objectives, Muskingum will purchase computers with a laser printer, a microcomputer network for the beginning labs and computer-interfaced measurement instruments for the advanced labs. The microcomputers in the beginning labs will include interfaces that turn them into fast, accurate, multipurpose lab instruments that beginning students can use with ease. The interfaces for the advanced lab experiments will allow the students to design and carry out computer-run experiments. For both beginning and advanced labs, the laser printer will provide high quality graphic output from which the students will extract data. This project will improve the physics program by making the labs more up-to-date, more instructive and more interesting for the students.